Dynamical Instabilities in Laminar Premixed Flames

An experimental study of dynamical instabilities in laminar premixed flames is conducted. The results are to be compared with recent predictions of theoretical combustion science and nonlinear dynamics. Most of the research is to be conducted on low-pressure, hydrocarbon-air flames on a porous plug burner. Prior experimental studies of low-pressure, burner-stabilized hydrocarbon flames have identified four nonsteady modes of propagation: an axial made in which the flame front moves perpendicular to the burner; a radial mode in which the flame front periodically changes its spatial extent on the burner; a spiral mode in which the flame front assumes a nonplanar shape, such as a saddle. Even the most complicated motion of the flame front is described by only a few modes. The observations are similar to predictions for flames freely propagating in channels. This experimental study is to determine the spatial and temporal characteristics of these modes as a function of the external parameters. In addition, several studies are to be conducted which examine combustion phenomena from the perspective of nonlinear dynamics and the theory of chaotic systems.